New Algorithms in Distance Geometry and Application to Molecular Conformation

Professors Thomas Hayden and Judith Shelling are jointly supported by a grant from the Theoretical and Computational Chemistry Program, the Applied Mathematics Program, and the Division of Instrumentation and Resources to develop new approaches to the determination of macromolecular structure in solution through the use of 2-D NMR and distance geometry. This research will provide important new insights into biological structural problems. Professors Hayden and Shelling will develop improved computational algorithms for finding the coordinates of points in Euclidean space that generate distances which approximate those found experimentally from NMR spectroscopy. Recent advances in the theory and geometry of distance matrices have resulted in efficient algorithms for solving this problem. Additional algorithms based on these theoretical results will be investigated, and these algorithms will then be applied to the determination of conformations of molecules of biological interest.